Computational Methods for Problems in Material Science

This project concerns the development of efficient numerical
methods for problems related to material science. The
investigator studies computational issues concerning the
numerical solution of continuum models for thin film growth. Many
of these models include effects for surface diffusion, which is a
nonlinear 4th order term. Consequently, these models are very
stiff from a computational point of view. Because the surface
diffusion term is nonlinear, it is difficult to use implicit
methods. The investigator introduces a new semi-implicit level
set method for solving motion by surface diffusion. He uses this
new method to incorporate the effects of surface diffusion into
models of polycrystalline thin films. He also develops a new
approach for computing island dynamics, where the adatoms on the
terraces are considered as a continuum field and the atoms on the
edge of the island are treated discretely. This approach retains
the potential advantage of continuum methods but at the same time
preserves the discrete and stochastic effects present in island
dynamics. The investigator includes effects of edge diffusion,
surface tension, nucleation, and elasticity. An important
computational aspect of this problem is the numerical solution of
the diffusion equation in a complex domain. The investigator
examines new methods for the efficient solution of this problem.
Thin films occur in a large number of applications, from
coatings on bearings to semi-conductor devices. In many cases
these films are not single crystals but instead are
polycrystalline and the quality of the film can depend on its
texture. Films with good biaxial texture are close to being a
single crystal and have applications in the manufacture of
super-conducting tapes, for example. One important physical
effect in determining the evolution of the texture is surface
diffusion, but this is difficult to implement numerically and the
investigator plans to develop a semi-implicit level set method to
study the growth of polycrystalline thin films. The work here
could help improve the fundamental understanding of these films.
Another important process by which thin films are made is
molecular beam epitaxy. The standard method for accurate
simulation of this process is kinetic Monte Carlo. In many
situations this method can be slow, and continuum models have the
potential to greatly increase the speed of such computations.
However, continuum models ignore discrete and stochastic effects.
The investigator develops hybrid models that have good physical
fidelity but offer considerable computational speed.